A Nationally Distributed Planetarium Star Program & Chart onExploration: "From the Earth to the Stars"

The Hansen Planetarium proposes the creation, writing, and production of a 50-minute star theater program, From The Earth To The Stars, and educational chart aimed at informally educating over a million individuals regarding the exploration of our planet, the planets of our solar system, and the stars beyond. The further production of three interactive exhibits is planned to accompany the program. This program will be marketed and distributed at a nominal charge to 250 national planetariums, with 50 additional production packets planned for loan. In this fashion, top-quality, accurate, and timely science education can be guaranteed to a large selection of audiences. In America today there is growing awareness and concern surrounding the serious deficit our society will soon experience in the fields of science and technology. The Hansen Planetarium's goal is to stimulate learning and interest in astronomy and other sciences for students of all ages across the country. Exploration is, perhaps, the human activity in western culture which can most provoke debate, excite intense interest and stimulate scientific and cultural growth. The utilization of expert consultants, in conjunction with Hansen Planetarium staff, will insure this program presents the most current information available about the past, present, and future of exploration. Its interactive format is designed to stimulate a proactive approach to problem solution on the part of the audience as a stimulus to the learning process. The star show format, with its dynamic special effects, will enhance the learning of science in America today.